Research Initiation: Study of Subthreshold Laser Illuminat-ion Effects in Solids Using Raman Scattering

Raman scattering will be used to observe and characterize gradual structural changes in solids during repeated illumination by picosecond pulses. By detecting the shift, broadening, and lineshape changes of the Stokes line with an accuracy of + 0.1 cm-1, the accumulation of plastic strains and the formation of microcrystallites will be readily detected. Other candidates to explain the precursors will also affect the Stokes line. These experiments will first be performed in disordered and crystalline semiconductors (bulk or thin film), then extended to other materials, such as those used in optical coatings. The results will be compared to existing models, and the nature of the precursors will be established.